Enforcement and Compliance Decisions under OSHA and EPA Regulation

Over the past several years, there have been numerous ethnographic or qualitative case studies of regulatory enforcement processes. Although helpful, such studies have not provided systematic, empirically-grounded analyses of the relationship between regulatory enforcement practices and compliance. Moreover, there are few wide-ranging quantitative studies indicating how measurable political and economic variables affect enforcement techniques and compliance levels. This study will amass valuable data relevant to these issues and provide a useful mapping of statistical relationships among relevant factors. The project will examine the compliance and enforcement decisions related to four regulatory programs in two regulatory agencies: regulation of worker health and worker safety by the Occupational Safety and Health Administration, and regulation of water pollution and air pollution by the Environmental Protection Agency. Two data sets of economic and regulatory variables will be created covering the period from 1973 to 1986. The first dataset will contain 450 industries, covering the manufacturing sector. The second dataset will contain company and plant-level data for three manufacturing industries. The analysis will allow for simultaneous estimation of the agency's decision of how to allocate its enforcement across firms and the firm's decision of whether or not to comply with the agency's regulations. Both decisions will depend on observed economic, political, and technological factors. The results of this research should provide a significant contribution to our understanding of the interaction between enforcement activities of regulators and compliance decisions of the firms they regulate. Beyond contributing to theory on the behavior and impact of regulatory agencies and legal compliance, the results may indicate ways in which agencies can improve the efficiency of their enforcement strategies, gaining greater compliance given their available resources, and, ultimately, improving productivity. In addition, the databases to be prepared will be a valuable tool for further research projects on similar topics.